Mathematical Sciences: 1995 and 1996 Albany Group Theory Conferences

9523169 Turner This award provides partial support for the seventh and eighth annual SUNYA Topology and Group Theory conferences, October 13-15, 1995, and October 11-13, 1996, in Albany, New York. The conferences concentrate on combinatorial group theory and low dimensional topology. The invited speakers in 1995 are Robert Bieri, Mikhael Gromov, Narain Gupta, William Menasco, Chuck Miller, Richard Schwartz, and Efim Zelmanov. It is axiomatic that algebraic topology draws heavily upon group theory, but one charm of the subject of these conferences is that the flow is substantially in the other direction, with topology repaying its debt in shedding light on the properties and structure of groups. ***